Mathematical Sciences Research Equipment, 1989

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences of the National Science Foundation. This program supports the purchase of special purpose computing equipment dedicated to the conduct of research in the mathematical sciences. This equipment is required for several research projects and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers and with substantial cost-sharing from the institutions submitting the proposal. This program is an example of academic, corporate, and government cooperation in the support of basic research in the mathematical sciences. This equipment will be used to support three projects in the Department of Statistics at the University of Michigan, Ann Arbor: Multivariate Statistical Analysis, directed by Robb Muirhead; Sequential Design and Analysis, directed by Janis Hardwick, Robert Keener, and Michael Woodroofe; and Bandwidth Selection for Smooth Estimation of Statistical Functionals, directed by Julian Faraway.